NSF INCLUDES DDLP: SPICE (Supporting Pacific Indigenous Computing Excellence) Data Science Program for Native Hawaiians and Pacific Islanders

The University of Texas at Austin's Texas Advanced Computing Center, Chaminade University of Honolulu (CUH), and the Georgia Institute of Technology will lead this NSF INCLUDES Design and Development Launch Pilot (DDLP) to establish a model for data science preparation of Native Hawaiian and Pacific Islander (NHPI) students at the high school and undergraduate levels. The project is premised on the promise of NHPI communities gaining access to, and the ability to work with, large data sets to tackle emerging problems in the Pacific. Such agency over "big data" sets that are relevant to Pacific issues, and contemporary skills in data science, analytics and visualization have the potential to be transformative for community improvement efforts. The effort has the potential to advance knowledge, instructional pedagogy and practices to improve NHPI high school and undergraduate students performance in and attraction to STEM education and careers.

The project team will work to: 1) Increase interest and proficiency in data science and visualization among NHPI high school and undergraduate students through a summer immersion experience that bridges computation and culture; 2) Build data science capacity at an NHPI serving undergraduate institution (CUH) through creation of a certificate program; and 3) Develop and expand partnerships with other organizations with related goals working with NHPI populations. The month-long summer training for 20 NHPI college students, and five NHPI high school students, takes place at CUH and focuses on data science, visualization, and virtual reality, including working on problem sets that require data science approaches and incorporate geographically, socially- and culturally-relevant research themes.